Mathematical Sciences: Poisson Geometry and Quantization

9625122 Weinstein This project lies in the general area of mathematical physics. The investigator aims to apply methods of symplectic and Poisson geometry, and Lie groupoids and Lie algebroids, to the study of operators on manifolds and more generally quantization problems. More specifically, this project will develop microlocal analysis adapted to the Bruhat decomposition of generalized flag manifolds, and pursue a proof of an index theorem for Fourier integral operators and formulate a theory of Poisson modules, with applications to systems of linear partial differential equations. Symplectic geometry is a mathematical tool used to lay a theoretical framework encompassing large parts of classical mechanics. Ideas from symplectic geometry and Poisson geometry can be used to explain and predict various mechanical phenomena - e.g., locomotion generation and motion control - in an elegant manner.